Ultraviolet Radiation Induced DNA Damage in Bacterioplankton in the Southern Ocean

9419037 Jeffrey There is now strong evidence that ultraviolet radiation is increasing over certain locations on the Earth's surface. Of primary concern has been the annual pattern of ozone depletion over Antarctica and the Southern Ocean where ozone levels have declined as much as 74% compared to pre-ozone hole events. Reduction of ozone concentration in the stratosphere has been shown to result in an increase levels of ultraviolet radiation. The impact of increased ultraviolet radiation due to ozone depletion upon phytoplankton and primary production has received extensive interest, while the effects on bacteria have been largely overlooked. It is apparent from previous studies in both the Southern Ocean and elsewhere that bacteria play a vital role in mineralization of nutrients and provide a trophic link to higher organisms. The objectives of this study are identify DNA damage in bacterioplankton resulting from ultraviolet radiation and as a function of ozone depletion, relate the intensity of the induction of DNA repair genes (recA) to the extent of damage, and estimate the effect of the stress on carbon fluxes through bacterial assemblages. Sensitive new advances in molecular biology to identify photoproducts and examine the induction of cellular DNA repair mechanisms will be coupled with traditional approaches for measuring bacterial biomass and production. Pyrimidine-pyrimidone (6-4) photoproducts and cyclobutane dimers are the unique photoproducts created by ultraviolet radiation. These DNA lesions may be identified using radioimmunoassays. The recA gene is wide spread and highly conserved among bacteria. Because of the pivotal role of this gene in repairing damaged DNA, its concentration and activity will be used as a direct assay of the bacterial response to DNA damage. With measurements of bacterial biomass, production and growth efficiency, subtle effects on bacterial carbon fluxes will be estimated. The results will provide information on the amount of UV induced molecular damage and repair mechanisms in planktonic populations. Both ultraviolet-A radiation and ultraviolet-B radiation create cellular damage, while only ultraviolet-B radiation is enhanced as a result of ozone depletion. Through simultaneous analysis of DNA damage and the induction of the recA gene as a general response to damage, the effect of ultraviolet-B radiation will be contrasted with other mechanisms of DNA damage. Additional information will be provided on the effects on total production and further elucidate the interactions of bacteria and phytoplankton production in the Southern Ocean.